Architectures for Multichannel Optical Fiber Communication Using Arrays of Surface Normal Devices

During the next three years the Principal Investigators intend to establish an interdisciplinary research project to develop novel schemes for transmitting many channels within the terahertz bandwidth of a single-mode optical fiber, by extension of existing efforts in III-V semiconductor optoelectronics, diode laser physics and engineering, high-speed detector development, surface-emitting lasers, spatial light modulators, and optical switches, and parallel optical information processing. The emphasis will be on interfacing many parallel data streams into a single optical fiber using two-dimensional surface-normal architectures. This addressed vertical cavity surface- emitting laser and spatial light modulator arrays. The initial emphasis in this program will be on dense time-division multiplexing and demultiplexing at a specific center wavelength, by means of arrays of spatial light modulators. Further efforts will be aimed at pipelining several such sets of time- multiplexed data into a fiber using wavelength-division multiplexing. Physical device models and global Monte Carlo simulations of complete systems will be used to study the properties of various architectures, for comparison with experiments. At the end of three years the investigators will have developed a working prototype system for time- division multiplexing of ten data channels timed and recovered by using interleaved gain-switched or mode-locked picosecond pulse trains and phase mudulator arrays. An important element of this scheme will be the development of optical coincidence detectors for time- division demultiplexing, based on arrays of bistable etalons or thresholding optical detectors. The principal investigators also will have assessed the feasibility of combining several groups of time- division multiplexed data at different wavelengths, using arrays of single-mode edge-emitting and surface-emitting lasers, and arrays of spectrally matched detectors.